New Laboratory Experiments in Analog Electronics Courses Using Microcomputer-based Instrumentation and LabVIEW

This project provides new improved laboratory experiments pertaining to analog electronics courses in a 2-year electrical engineering technology program. Experiments related to temperature effects, nonlinear systems, advanced devices and circuits, and noise effects are conducted using the microcomputer-based workstation and LabVIEW. The project involves developing new test methods or virtual instruments to characterize the new laboratory experiments. The workstations can also be utilized for other laboratory experiments related to circuit and analog electronics courses in electrical engineering technology and sophomore engineering curricula. In this project, the student's learning behavior and understanding of the concepts related to proposed experiments are also studied. A survey of questions is being devised to get the feedback from students regarding the usage of new laboratory equipment and LabVIEW.